Connecting NSTA K-16 Science Content to NSDL

This project is connecting the vast storehouse of vetted materials and resources available through NSTA to the NSDL. In so doing, it is extending both the number of educators it serves and the number and kinds of resources offered. Furthermore, NSTA and ENC are prioritizing the resources being connected to the NSDL and its Pathways projects; developing an e-publication model; establishing adequate metadata for all resources; and building the infrastructure and software needed to create, sustain, and provide access to the collection of resources. All of these activities are supporting the interoperability, reusability, and persistence the collections. Lastly, NSTA and ENC are investigating new ways of selecting, describing, and cataloging digital resources, contributing to the long-term expansion and improvement of the NSDL.